Science, Technology, and the Historical Influence of Race: An Interdisciplinary Conversation

Project Summary:
Science, Technology, and the Historical Influence of Race: An Interdisciplinary
Conversation. The proposal is for a 2-day workshop to be held in the fall of 2006, a smaller follow-up
meeting to be held in the spring of 2007, and preparation of an edited volume.
Historians of technology have recently focused their attention on inequitable social
agendas embedded in the design of artifacts, engineered structures and systems, and
productive labor. Similarly, historians of science have chosen to study applications of
science to the production and maintenance of racist thought particularly in the medical
and life sciences. Both disciplines have begun to identify important ways in which the
presumed objectivity of technological and scientific discourses supports racism. That
presumption of value-neutrality has historically sustained not just racialized scientific and
technical knowledge but exclusive occupational patterns in these supposedly meritocratic
fields, as well. At the same time, scholars in other disciplines such as labor and
economic history, and race and gender or urban studies, continue an older commitment to
studying institutional and cultural practices that undergird inequality in the United States.
From those disciplines there has arisen a vital body of theory regarding race, explicating
how notions of difference have achieved centrality in so many private and public spheres.
These fields address systemic inequities within urban planning, employment, education,
electoral or economic practices, and other structural aspects of modern society. Through a
two-day workshop and subsequent, collective preparation of an edited volume of
conference papers all of these scholars might profitably share their methodologies and
findings to bring a fuller picture of race in the United States. This cross-disciplinary
exchange will explore how science and technology, and hierarchical features of American
society, support one another. Intellectual Merit: This project integrates concerns of the history of science and
technology with those of other disciplines, part of an initiative of the Society for the History of Technology to host small, inter-disciplinary meetings. Through invitations and a widely circulated call for papers we will convene twenty-five junior and senior scholars to discuss race formation in four arenas: The Built Environment, The Technological Career,Instruments and Other Knowledge Systems, and Bodies and Biologies. A follow-up workshop some six months later will bring ten of the participants together to
create a published volume of conference papers of unusual scholarly reach. Broader Impact: Race has been understudied in the history of science and technologyand the exchange outlined here will support the address of historic inequities inoccupational, environmental and medical realms. It will also present to other social
sciences techniques used in the history of science and technology, including the close study of material artifacts and knowledge systems associated with processes of raceformation. All of the organizers and many of the participants will be women and minority scholars.